Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM)

Ajay K. Bose
Stevens Institute of Technology

For more than forty years, Dr. Ajay K. Bose has conducted educational, research and mentoring programs that have enhanced the science and engineering careers of hundreds of women and minority students at the pre-college, undergraduate and graduate levels. Prof. Bose's most notable contributions include an undergraduate summer research program which is now in its 28th continuous year of successful operation. Over 400 students that have benefited from this program have pursued careers in chemistry and related sciences. A pre-college version of this program, also established by Prof. Bose, has helped high school teachers convey the excitement of chemistry through experimentation and has recruited many disadvantaged students from inner city schools for summer research experiences. Through his "Equipment of the Month Club", Prof. Bose lends sophisticated equipment to inner city schools. Prof. Bose has also mentored thirty-two Ph.D. students.